Parallel Computer Architecture and Intelligent Systems for Real-Time Concurrent Applications: Energy Control Centers

Basic research will be conducted on advanced parallel computer architecture and the implementations of real- time, high performance, intelligent systems and knowledge-based information processing. These processing techniques will be used to accomplish the excessive computations involved in solving algorithms for state estimation and contingency analysis at almost real- time speed. The results of this work will be used to optimize the on-line operation and control of electric power systems.